Computational Thinking Olympiad: Brainstorming Workshop

Objectives of the Project
We propose a workshop for brainstorming and planning for the Computational Thinking Olympiad (CTO). The goal of this olympiad is to increase the awareness of Computational Thinking at the high school level.
The proposed workshop will be focused on deciding on the desired content of the Olympiad. We have generated (though an NSF-sponsored REU supplemental grant) a private Wiki that contains lists of example problems from related programs, such as COMAP, ACM Programming Contest, ICPC and IOI. The Wiki contains over 40 example problems. In this proposed workshop, we will
discuss these related programs, determine the niche into which the CTO would t, and determine what sorts of problems t best therein.
At the conclusion of the workshop, our aim is to have dened the sort of problem to be solved at the CTO, decided the roll of programming projects in the CTO, and placed ourselves within the context of other, related, Olympiads.